Dissertation Research: Ecological Determinants and Evolutionary Consequences of Dispersal

Most natural populations exhibit cycles of growth and decline. In addition, the number of individuals of a given species may increase in one area while it is decreasing in a neighboring locale. These local dynamics are tied together by individuals that move from one population to another, i.e. disperse, over the course of their lifetime. This research project focuses on two particular aspects of dispersal in animals. First, dispersal provides immigrants to areas from which a species has disappeared thus compensating for small scale extinctions which commonly occur in many species and ensuring long term persistence. Moreover, dispersal forms the basis for gene flow, one of the key factors that determine the genetic structure of populations. The following questions will be addressed. 1) How frequently should animals disperse in a given situation assuming that this strategy significantly influences their chances of survival and reproduction? 2) What are the critical factors that could trigger large scale extinction in this network of local extinction and recolonization? 3) How much genetic variation can be maintained in such a system of interconnected populations thereby providing the raw material for evolutionary change? The principal investigator will approach these questions by contrasting a computer simulation with a field study on the pond- dwelling water beetle Dineutus assimilis. The rate at which these beetles move from pond to pond will be measured in the field and genetic differences among the study populations will be quantified by analyzing mitochondrial DNA variants. This molecular technique is a powerful tool to describe small scale genetic variation in animals. The information obtained in the field will be used to check the assumptions on which the simulation is based. The computer model can then be used to extrapolate beyond this particular natural system to explore the consequences of dispersal over a wider range of conditions.